Studying Scientist-Educator-Artist Collaborations and Participatory Community Learning around Environmental Change and Adaptation

As part of its overall strategy to enhance learning in informal environments, the Advancing Informal STEM Learning (AISL) program seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. This includes providing multiple pathways for broadening access to and engagement in STEM learning experiences, advancing innovative research on and assessment of STEM learning in informal environments, and developing understandings of deeper learning by participants. This two-year Pilots and Feasibility project seeks to build knowledge and strategic impact in the informal STEM learning field by studying how and why science-education-art collaborations yield impactful informal STEM learning experiences. By design and implementing interactive and participatory experiences for adult audiences, this project will build knowledge about how to help communities learn about environmental science and apply scientific knowledge to environmental decision-making in their lives.

The project’s two overarching research questions are: (1) What are the essential elements of collaboration among scientists, educators, and artists that support learning about adaptation in a changing environment? (2) In what ways do designed, participatory, informal science learning experiences support participant learning? This pilot project will: a) develop methods for facilitating and assessing collaboration among scientists, educators, and artists; b) pilot and refine approaches for engaging scientists, educators, and artists with community members for high quality participatory experiences focus on learning about adaptation to environmental change in informal learning settings; c) pilot and refine methods to measure the outcomes for community participants on knowledge about environmental change and its application to problems in their everyday lives. This project is innovative in bridging a diverse body of scholarship in order to study the process of collaboration and the specific ways interdisciplinary collaborations foster learning. Because informal STEM learning settings often combine the work of multiple disciplines, examining the process and outcomes of collaborative, participatory STEM learning has the potential to deliver widely applicable guidance for achieving more impactful educational outcomes.

The proposed project will broaden participation by engaging adult members of environmentally vulnerable communities in participatory STEM activities and will improving individual and community well-being by delivering tools for future decision-making. The collaborative project will build valuable partnerships and capacity between disparate sectors of society, allowing co-learning and co-production of knowledge. Results will be published in scholarly journals as well as shared with community participants.